Enhancement of the Computer Engineering Academic and Research Program at UPRM

The Department of Electrical and Computer Engineering of the University of Puerto Rico at Mayaguez (UPRM) will acquire new computing resources to enhance the established academic programs and strengthen research efforts. These computing resources are required to attain the following goals: Develop a Master's Program in Computer Engineering within three years. Attract minority students, from the island and the mainland states, to careers and graduate education in computer engineering. Increase significantly the research output and the number of technical publications in learned journals. Strengthen the computing and connective infrastructure so that researchers can join the knowledge and information intensive environments made possible through networking within the academic and industrial communities. Build an infrastructure to promote faculty development and to create an environment for research. Develop a program of manufacturing-related research and development that will forge close ties with industry and foster future entrepreneurial product development for a world market. As the final outcome of this project, the number of trained minority computer engineers entering the workforce from the institution at both undergraduate and graduate levels will significantly increase in quantity and quality. The students and faculty will be able to use computing equipment comparable to that used in industry in their studies and their research. Faculty will be able to conduct state of the art research for both government and industry sponsors.